Antinucleon-Nucleon and Electroproduction Reactions (Physics)

The research proposal has two components. The first is the study of nucleon-antinucleon reactions in a coupled channel formalism, which leaves room for a six quark treatment of short range dynamics. The second is the study of meson electroproduction reactions and hypernuclei.